RUI: Mechanisms of Activity-Induced Circadian Clock Resetting

LAY ABSTRACT IBN 9808866 The circadian clock that controls daily rhythms of many bodily functions and behaviors can be reset in by vigorous exercise. Whether or not the clocks reset depends on the time of day and intensity of the exercise. This project will focus on the behavioral and neural mechanisms underlying this response. Because not all individuals show the response, the first part of the project will develop criteria to predict which animals show activity-induced resetting. Next, an artificial selection study will be conducted to create a line of hamsters enriched with animals that show resetting. This enriched line will then be used to map regions of the brain that are activated during resetting. This will be followed by experiments that examine the involvement of GABA, a neurotransmitter in a part of the brain - the geniculohypothalamic tract - that has previously been implicated in activity-induced resetting. The results of this study will enhance our understanding of the process of clock resetting in the mammalian brain. Furthermore, the participation of undergraduate students in this project will provide them with valuable hands-on learning experiences that will complement and extend their standard course work.